Student Support for 2005 Gaseous Electronics Conference (GEC 2005); San Jose, CA; October 16-20, 2005

This award provides support for student travel to and participation in the 2005 Gaseous Electronics Conference. The conference is being held in San Jose, California, on 16-20 October 2005. Support is limited to students enrolled in a Ph.D program in the United States, and all students who receive support are required to present a paper at the conference.